Interrelations Between Structural Characteristics, Physical Properties, and SAR Signatures of Late-Summer Pack Ice in the Beaufort-Chukchi Sea

This project is a study of the composition and properties, as well as the associated synthetic aperture radar (SAR) signatures of warm arctic sea ice. Direct measurements will be made from US Coast Guard icebreakers in the late summers of 1992 and 1993 in the Beaufort and Chukchi Seas. Sea ice characteristics to be investigated will include thickness, salinity and temperature profiles, dielectric properties, crystal structure, and surface conditions. These characteristics will be used to model the expected microwave backscatter intensities, which will be compared to observed backscatter intensities obtained by the SAR instruments on board the ERS-1 and JERS-1 satellites. The project will contribute to an improved understanding of the internal structure of arctic pack ice, of the specific summer properties of warm sea ice, and SAR signature variations produced by differing ice characteristics. The information produced by this study is expected to be particularly valuable in other fields of polar oceanographic research, such as sea ice dynamics and thermodynamics, ice mechanics and rheology, oceanic heat and salt fluxes, and sea ice biological processes.